EAGER: Design and synthesis of metal-organic frameworks for efficient hydrogen storage

PI: Wu, Jianzhong
Proposal Number: CBET - 1111731

Intellectual merit:

Design of MOF materials for efficient hydrogen storage requires a good understanding of hydrogen interaction with the substrate at the atomistic scales. Whereas the literature on hydrogen storage is now vast, conventional theory and simulation methods are insufficient to account for the non-classical behavior of hydrogen-MOF interactions that involve hydrogen dissociation/recombination. Novel computational methods are needed for successful description of the quantum effects affiliated with both the local electronic structures of hydrogen atoms near the active sites of the MOF materials and the weak but long-ranged van der Waals interactions among hydrogen molecules within the microscopic pores. A faithful description of the strongly correlated electronic/atomic systems is extremely challenging and the theoretical difficulty consists of a high risk of the proposed research. However, if successful, the theory will have tremendous impact because it provides quantitative connections of chemical reactions or electronic properties with physiochemical properties for macroscopic systems.

Broader impacts:

The exploratory research will contribute to fundamental understanding of multi-body phenomena entailing strongly correlated electronic, atomic and molecular interactions. A synergistic combination of theoretical and experimental investigations may lead to a better design of novel materials for hydrogen storage. The project will provide graduate and undergraduate students with opportunities to get first-hand experience on cutting-edge research that entails both theory and experiments. The PI and co-PI will promote outreach and exposure of underrepresented minority pre-college students to science and innovations.